NSF Young Investigator: Theory of Astronomical Masers

9357389 Neufeld This NSF Young Investigator award will support Dr. Neufeld's theoretical investigation of astronomical masers. He will explore the physical conditions required to pump such masers, the astrophysical phenomena which give rise to those conditions, and the geometry needed to generate an individual maser feature of given observed properties. ***